SGER: PQL: A Path Query Language

This proposal extends current research in creating a query language
for provenance to a broad range of application domains by designing,
developing, and evaluating a general-purpose query language for
graph-oriented data.

PQL, the path query language, was designed to address the challenges
encountered in expressing queries on provenance or lineage data,
but it was conceived to be the foundation for a general purpose
data model and query language for manipulating any type of
graph-oriented data. Graph-oriented data arises in many disciplines
including computer networking, information retrieval, biology, web
search, social networking, genealogy, etc. A characteristic that
unites all these domains is that need for expressing queries on
paths through a graph. Most existing solutions today have either
a weak or non-existent notion of paths as first-class entities that
can be named, compared, manipulated and constructed. PQL addresses
this problem.

Derived from the semi-structured database language, Lorel, PQL
operates on semi-structured data, which can be viewed as a collection
of objects linked together. In PQL, these links are unidirectional,
although we support both forward and backward queries across these
links. Queries are expressed by selecting and filtering one or
more paths in the graph, where paths can be described by regular
expressions. Thus, in the provenance domain, one can talk about,
''all paths in the graph between invocations of a compiler and the
resulting executables.'' In biology, one might pose a query about,
''all paths from a particular combination of gene expressions to
resulting insulin production.''

The work described in this proposal extends PQL to include update
syntax and semantics and the ability to produce query results that
are graphs constructed from components of the original. The result
of this work will be captured in both a machine-checkable formal
specification of the language and an open source PQL implementation,
complete with a (replaceable) back-end implementation.

Further information on the project can be found at the project web page:
http://www.eecs.harvard.edu/~syrah/pass/